Antarctic Remote Sensing Facility: Development, Installationand Validation

This project is designed to establish two distinct facilities to obtain, process and enhance polar orbitting satellite imagery of Antarctica. One system will be located at McMurdo Station Antarctica where it will obtain, and record real time imagery from the TIROS-N and DMSP series satellite for use in weather forecasting in support of Antarctic inter and intra continental aircraft flight operations. In addition, this system will provide investigators who deploy to Antarctic an opportunity to preview imagery tapes prior to further analysis at the facility to be established in the U.S. In conjunction with the McMurdo facility, a complementary computer system will be established at the Scripps Institute of Oceanography. Its function will be to archive the tapes collected in Antarctica via the image receive system, and will provide the capability to manipulate the data digitally to enhance the specific remote sensing information embedded in the imagery obtained from the sensors onboard the satellites. These facilities are unique in their provision of Antarctic remote sensing data to the operational as well as the science research community.